AF: Small: Expanding the Reach of Topological Data Analysis

Data science and analysis have taken a center stage in modern years for a swath of applications
embracing daily life. In general, AI and machine learning have been the backbone of this
development. Recently, a technique based on the classical mathematical area of topology has evolved
that is showing promise to complement and in some cases be an alternative to AI techniques. As this
emergent area, known as topological data analysis (TDA), expands its reach, the task of extracting
intelligent summaries out of diverse, complex data becomes increasingly challenging. To meet this
challenge, TDA also needs to expand its current repertoire of techniques by making further and
deeper connections between mathematical and algorithmic concepts. This project aims to develop
these techniques while training graduate students and other workforce in data science as a
consequence.

The project, in particular, will investigate several novel mathematical concepts in conjunction with
computations to address various challenges appearing in the following topics: (i) augmenting
topological summarization with geometry, (ii) connecting discrete Morse theory to further
applications, (iii) developing persistence theory for combinatorial dynamical systems, and (iv)
developing multi-parameter persistence from a computational view-point. A successful algorithmic
theory supported by sound mathematics for the four aforementioned themes can provide a powerful
tool for data exploration and analysis in a spectrum of engineering and scientific fields. The
proposed outreach activities will also further consolidate the ongoing effort of bringing together
different communities in science and engineering engaged into modern data analysis. The project
will help train graduate students who will develop skills in mathematics and theoretical
computer science, most notably in algorithms and topology, in writing efficient and usable software,
and in its application to analyzing real-world data sets. Efforts will be made to recruit and mentor
students from under-represented groups, as has already been done by the investigator.